Optimization of Pseudospectra

Optimization problems involving eigenvalues arise in many
applications. In recent years, attention has focused on
semidefinite programs, which are linear optimization problems in
the space of real symmetric matrices, with positive semidefinite
constraints. This project focuses on optimization problems in the
larger space of square matrices, not generally symmetric. In this
context, it is well known that eigenvalues, which provide
information about asymptotic behavior of dynamical systems, are
not as useful as pseudospectra, which provide a more robust
measure of system behavior. This project focuses on the
computation, analysis and, especially, numerical optimization of
pseudospectral functions. A secondary goal is to advance the
development of algorithms for general nonsmooth, nonconvex
optimization problems.

Applications of this work arise in many contexts. A good example
that we have used is a model of a Boeing 767 at a flutter condition.
Flutter occurs when the plane flies so fast that the interaction
of the aerodynamic (wind) forces with the structural forces in
the airplane combine to generate an instability which could be
catastrophic. Normally, a plane like this does not fly so fast but
it is important to know what would happen if it did, and whether a
simple controller could bring the plane under control. Eigenvalues
tell us about stability in the long term, but pseudospectra are far
more informative, telling us about stability in the short term.
Optimizing the pseudospectra over the parameters of the
controller may result in the design of a controller that is simple
yet effective in avoiding the instability and preventing catastrophe.